Summer Physics Research Program for Undergraduates

*** Newman A physics research program for ten undergraduate students will be continued at UC Irvine each summer for the next three years. The program involves projects with a variety of physics research groups under close supervision by faculty and senior research staff. Research opportunities are offered in the areas of experimental elementary particle physics, condensed matter, plasma physics, and astrophysics. Close contact between student participants, encouraging the sharing of research experiences in these varied areas is promoted by providing shared housing, and through social activities. The research experience is further enhanced through a seminar series, visits to the labs of fellow participants, and excursions to other research labs in the Los Angeles area. ***